SBIR Phase II: Biological Treatment of Hydrocarbons in Shipboard Exhaust Gas Cleaning Systems

This Small Business Innovation Research (SBIR) Phase II project will address new regulations being enacted in
the shipping industry requiring Sulfur Oxides (SOx) reduction from engine emissions. Many commercial
scrubber systems effectively remove SOx from engine emissions, yet none are designed to remove polycyclic
aromatic hydrocarbons (PAHs). EnSolve’s approach is to develop a combined biological and mechanical
system that can remove PAHs from the scrubber system waste water. The results of the Phase I study confirmed
the biomechanical approach was effective in reducing PAHs at rates exceeding 99%.

The broader impacts of this research will be to provide the maritime industry with a cost effective, reliable, and environmentally conscious treatment system for removing toxic substances from the world’s oceans. Ships will be required to either install scrubbing equipment or they will need to switch to more costly low sulfur fuels. A switch to low sulfur fuel would increase current fuel costs by over 88%. A commercial ship owner could realize annual savings of $2 million per vessel in fuel costs using a scrubber system compared with purchasing low sulfur fuel. An estimated 35,000 ships will be impacted by these regulations, yielding a market opportunity for the proposed scrubber water treatment system exceeding $5 billion. Other technologies under development utilize pure physical separation methods that transfer the contaminants from the scrubber water to another medium (i.e., filters) for disposal. Conversely, the proposed biological approach is a regenerative process that would significantly reduce landfill disposal, consumable, labor, and liability costs.